13th International Conference on Theorem Proving in Higher Order Logics

CCR-0072763
Richard Kieurtz
Oregon Grad Institute

This is a grant to support the 13th annual Conference on Theorem Proving in Higher Order Logics (TPHOLs 2000) to be held at the Oregon Graduate Institute during August 2000.

This conference will bring together top researchers from around the world to discuss higher-order logic theorem provers. A conference allows new ideas to be disseminated more rapidly than is possible through the literature. Applications of this subject include, among others, hardware verification & synthesis, and verification of security & communications protocols. NSF is giving $10,000 for scholarships to subsidize up to 20 students who would otherwise be unable to attend.